Functions of Hormones and Circadian Rhythms in the Regulation of Behavior

To be adaptive, an animal's behavior must change depending on the organism's physiological or developmental state. Dr. Truman's research is directed towards understanding both external (e.g. circadian rhythms) factors and internal (e.g. steroid and peptide hormones) factors that influence the central nervous system to regulate behavior. Using a relatively simple invertebrate model system, he is unraveling the mechanisms by which ecdysteroids, a class of steroid hormones, affect the release of eclosion hormone, a neuropeptide, to orchestrate changes in behavior. Dr. Truman has identified four neurons that are responsible for all of the eclosion hormone found in the central nervous system. He will now focus on the cellular properties of these neurons. Using state of the art electrophysiological and anatomical techniques, Dr Truman will define the mechanisms that control the release of this peptide, and then determine how it acts on the central nervous system to evoke the stereotyped behavior changes. In addition, he will employ a different invertebrate model system to examine the importance of circadian control in controlling behavior. The results from this research will provide novel insights into the relationship between the neuroendocrine system and behavior. These data serve as the foundation for the development and application of practical procedures in controlling agricultural and medical insect pests.